Comet Shoemaker-Levy (1993e) and Jupiter's Magnetosphere

9322122 de Pater Dr. de Pater will conduct a world-wide observing campaign at centimeter wavelengths when Comet Shoemaker-Levy 9 passes through Jupiter's magnetosphere and into its atmosphere. The passage of the cometary fragments and dust particles through the magnetosphere followed by a series of impacts into the planet's atmosphere are expected to cause dramatic changes in Jupiter's synchrotron radiation that will yield new information on magnetosphere processes. ***